An Undergraduate Faculty Workshop on Computer-Based Laboratories for Introductory Chemistry and Physics

Evergreen State College will offer a two-week workshop during the summer of 1988 focusing on computer-based laboratory curricula for introductory college physics and chemistry courses. The audience for the workshop is physics and chemistry faculty from colleges around the country. The purpose of this workshop is to: * demonstrate new ways of teaching introductory students to use personal computers as a laboratory tool to log, manipulate, analyze, interpret, and present experimental data, * explore the novel and unique laboratory experiments developed as part of the science program at the Evergreen State College. * demonstrate Evergreen's method of using laboratory explorations as a means of integrating the teaching of introductory calculus, chemistry and physics at the college level. The twenty participants selected for this interdisciplinary workshop will engage in hands-on exploration of laboratory computer equipment, software, and experiments. In addition to NSF funds, the college will provide about 15% in personnel time and participants will contribute about 15% in travel costs to the actual cost of the project.